Integration of Microcomputer-based Instruction into Business Statistics Courses

This project will support instrumentation in the Applied Mathematical Sciences Department of an open-admissions college. A classroom will be equipped with twenty-five networked IBM-PC (or IBM compatible) microcomputers and a large scale projection screen for demonstration purposes. The equipment will be used in two junior level statistics courses which are required of business majors. Students will encounter daily assigned classroom problems dealing with decision-making situations which require statistical analysis and interpretation of computer output. Solutions will be worked out on computers (two students per machine), as in a lab. Mathematically-shy business students will have a greater appreciation of statistical concepts and their applications to real world problems, more experience in dealing with the popular IBM-PC machinery and increased interest in pursuing optional senior level math courses in the area of the decision sciences. Business students, who represent fifty-eight percent of UH-Downtown's 1986 graduating class, will receive enhanced training in quantitative methods. Ultimately, other faculty will be encouraged to use this instructional lab for courses in computer science, numerical methods and calculus.